Development Control of Genes Encoding Chlorophyll-Binding Proteins

The objective of this project is to characterize mechanisms of photoregulation of chlorophyll a/b binding protein (Cab) genes of pea. These genes are located in the nucleus, but encode proteins which form complexes with chlorophyll and act as light harvesting antennae in chloroplasts. The experimental plan involves measurement of the phytochrome responses of individual Cab genes, as mRNA accumulation, in response to red light induction signals which differ by a factor of 10,000. A similar approach will be used to study the potential regulatory role of chlorophyll, chlorophyll precursors and postulated, but undefined 'factors' in the expression of Cab genes. Methods will also be developed for comparison of light effects on the transcriptional activity of different genes in nuclei from etiolated and greening seedlings. This proposal approaches the phenomenon of photocontrol from a different perspective than studies of gene promoter structure, and should be complementary to such studies in definition of the underlying molecular mechanisms.